An Undergraduate AI Laboratory

This project supports the enhancement of an existing Artificial Intelligence course and the introduction of a new Natural Language Processing course at this institution. The equipment funded by this award builds on an already existing lab and includes: Sun 3/60/M-8 workstations and Zenith PCs interconnected (with existing equipment) via Ethernet. Using this laboratory, undergraduate students in Computer Science study not only theoretical issues of artificial intelligence and natural language processing, but also practical issues related to programming in these areas. This award is being matched by an equal sum from the grantee.